International Symposium on High Dielectric Constant Gate Stacks will be held in Los Angeles, California on October 16-21, 2005.

ECS-0535679

This proposal requests funds to support the International Symposium on HIGH
DIELECTRIC CONSTANT GATE STACKS III to be held as part of 208th Meeting of
The Electrochemical Society, Inc. Los Angeles, California, October 16-21, 2005. More
specifically, the funds requested ($3,955.00) will be utilized for partial support of the
travel expenses for up to five deserving graduate/undergraduate students and registration
waiver for only 3 invited speakers out of 25 confirmed invited speakers.
This symposium will address the fundamental science and recent technologies of
advanced gate stacks for complementary metal-oxide-semiconductor (CMOS) and
memory applications in sub-65 nm feature size integrated circuits, including: (1)
Substrates: Higher mobility semiconductors such as strained Si, Si(110) and (111), SiGe,
Ge and III-V compounds, GeOI, GaAs-on-insulator, and SOI. (2) High k Gate Dielectric
Materials and Processing: Trends in high k gate dielectric technologies for 65 nm and
beyond, novel high k materials, advanced oxynitrides for 65 nm and beyond, high k gate
dielectric growth techniques, high k gate dielectric deposition methods, advanced
precursors for CVD. (3) Gate Electrode Materials and Processing: Trends in gate
electrode technologies for 65 nm and beyond; poly-Si, silicided, and metal gate
electrodes, band-edge and midgap work-function materials, gate electrode deposition
methods. (4) High K Gate Dielectric Interfaces: Silicon/High-K and High-K/Gate-
Electrode Interfaces Oxygen Diffusion and Mechanisms of Interface Layer Formation
Interface Preparation, Passivation, Engineering, and Control. (5) Advanced Gate Stack
Reliability: Identification of Main Reliability Problems in Low Voltage Application and
New Reliability Models Bias Temperature Instability Metallic Cross-Contamination
Across Layers Mechanisms of Electron Mobility Degradation Thermal Stability of New
Materials. (6) High K Gate Dielectric Characterization and Methodologies: Advanced
Physical, Chemical, and Electrical Characterization of Gate Stacks Accurate
Determination of Dielectric Capacitance Trap Parameter Extraction Non-Contact
Electrical Characterization Work-function Extraction Methodologies Determination of
Tunneling Electron/Hole Mass. (7) DRAM and Non-Volatile Memory Materials: Trends
in High K DRAM Capacitor Technologies Electrode/Dielectric Chemical Interactions
Thermal Stability of Structures Non-Volatile and Novel Memory Applications.